Astronomical Equipment for Teaching and Observing

The Physics Department at Furman will purchase five 8-inch and one 14- inch astronomical telescopes and other laboratory equipment for astronomy. The equipment is to serve three main purposes. The primary use is in the laboratory portion of an introductory astronomy course, a course which is taught at a level suitable for non-science majors. Some of the equipment is for indoor, on-campus use, whereas other items will be permanently installed in a modest observatory which is to be constructed by Furman at a mountain location a few miles north of Greenville, South Carolina. Second, the laboratories which are made possible through this project will provide valuable teaching experiences for the student assistants who will be involved. Finally, the new astronomy facilities will be made available, as are existing facilities, to local school, civic, church, and other groups for demonstrations, laboratory exercises, science projects, and observing sessions.